Testing Mineralogical Models of the Mantle Transition Zone Using Seismic Data

Mantle composition plays an essential role in understanding
evolution, mantle dynamics and phase transitions of the Earth's
mantle. With increasing amounts of experimental data, chemical
interactions of various phases can be explored between different
subsystems, and seismic velocity and density profiles can be
calculated based on compositional models. The ability to
quantitatively calculate seismic profiles based on compositional
models makes it possible for compositional models to be directly
tested and constrained using seismic data. The investigators will
perform a joint modeling of seismic and mineral physics data to
constrain compositional and thermal models in the Earth's
transition zone. The collaborative research also investigates
regional variation of seismic structures, as well as its cause,
using seismic data sampling various tectonic regions. The intellectual
merits of the collaborative research include quantitative and
integrative studies of seismic structures, wave propagation,
mantle composition and mantle mineralogy in the Earth's transition
zone. This research has broad impacts on training of
a graduate student in both seismology and mineral physics, and
providing seismically-constrained compositional and thermal models
which would serve as a basis for a quantitative understanding of
the effects of mantle mineralogy on the dynamics of the descending
slabs and ascending mantle plumes, and for a quantitative link
between seismic velocity perturbations, mantle temperature,
and density buoyancy in large-scale geodynamical modeling.